Coastal Ocean Dynamics

This is a zero dollars award to enable Wang to compute at the Corness Supercomputer Center. Wang will model the effects of variable wind stirring, surface heat exchange, and bottom topography in producing cross-shelf flows. These flows are the open ocean.